Mathematical Sciences: Mathematical Radiography

For several years the research of this project has been aimed at clarifying the nature of the information in single and multiple radiographs, development of methods to make effective use of it, and discovery of results of mathematical significance in the process. This aim will continue, but for the next year the primary aim will be the application of project formulas for sharpening single radiographs and for a new kind of computed tomography. The applications under current study include: quality control and failure analysis of atomic fuel elements, silicon integrated circuit wafers, metallic hip joints, and firearm combustion; rock porosity - in regard to the safety of waste disposal and to the flow of oil; normal vs. diseased bone; and normal vs. maligant soft tissue. This research involves use of mathematical methods to process data from radiography and is important for improving techniques in cat-scan and imaging.